Workshop: Faculty Workshop on "Teaching of Electric Drive," to be held at the University of Minnesota in Minneapolis August 4-6, l994.

9414044 Mohan A 3-day Faculty Workshop is proposed on the topic of "Teaching of Electric Drives for speed and position control in key areas such as robotics, energy conservation and electric transportation is widely recognized. The purpose of this workshop will be to provide a forum to the interested faculty to explore options in teaching of Electric Drives. Following is a list of possible topics for this workshop: What should be the prerequisites in terms of Electric Machine Theory, Power Electronics and Control Theory? Can the students be given the required information in this course without having to rely on prerequisites? Are there any good sources of lecture notes? What should be the role of simulations, if any? What are to the good simulation packages for this purpose? It is generally agreed that a hardware laboratory is a must How much of that should be in terms of classroom demonstrations and how much as lab experiments for the students to carryout? Should it be integrated with the lecture course or as a separate lab course? It is challenging and expensive to develop an Electric Drives Laboratory. Should it be developed based on off-the shelf drives available commercially or should it be developed in-house using power electronic components, DSPs, and so on controlled by a PC? What is the best way to teach field-oriented, vector control of induction motor drives, especially in an undergraduate course? To allow ample time for a free-flowing discussion on each topic, the attendance will be limited to 40 full-time university faculty on a first-come basis. Detailed notes will be prepared and distributed on the topic of Field-Oriented, Vector-Controlled Induction Motor Drives. A paper copy of the overhead transparencies used during the workshop will also be distributed to each participant. A copy of all this material alo ng with the Summary of the Workshop Results will be sent to NSF. ***